Nonparametric Methods for Functional Data

The investigator will combine theoretical analysis and applied tools to
develop innovative models, methodology, algorithms and data analysis for
functional data. A major goal of this proposal is to extend the reach of
functional data analysis methods to sparse, noisy and irregularly sampled
longitudinal data. Functional data and longitudinal data are assumed to be
generated by random trajectories that correspond to realizations of an
underlying stochastic process. These trajectories may be either observable
or hidden. Relevant theory for estimation and inference will be developed.
Current functional data analysis approaches and tools require densely
measured functions or completely observed functions on a common domain,
and abandoning these assumptions requires new tools. Similarly, extensions
of functional data analysis to situations where one has both longitudinal
and survival time components will lead to new practical statistical
methods as well as challenging research problems. The development and
application of new tools for curve warping in cases where a large fraction
of the variability of random curves lies in variation of time scale is
another challenging problem that will be addressed.

The statistical methods that will be developed by the investigator are
motivated by the need to analyze data that include large samples of gene
expression profiles, longitudinal studies in medicine and biology with
multivariate or generalized measurements, and time courses of behavioral
measurements, coupled with age-at-death information. It is expected that
the results of the proposed research will contribute in a significant way
to the analysis and interpretation of such data and will lead to new
insights into underlying mechanisms of gene regulation, complex dynamic
interactions in biological systems, and aging and longevity.